Dissertation Research: Termitaria and Avian Coexistence

9520800 Terborgh Interspecific competition plays an important role in structuring many communities, but similar patterns may also be produced by specialization. In avian communities many species nest in tree cavities, a chronically limiting substrate. Some tropical forest birds may avoid competition for tree cavities by nesting in the termitaria in active colonies of arboreal termites. This dissertation research will test two alternative hypotheses: (1) termitarium nesting birds specialize on termitaria and prefer to use them independent of the availability of tree cavities, and (2) termitaria currently provide a refuge from competition for limited tree cavities. These hypotheses will be addressed by using nest box experiments and determining the natural occupancy rates of termitaria and tree cavities. Behavioral data will be used to determine if birds receive advantages by nesting in termitaria instead of tree cavities. This research will provide insight into how the presence of a substrate used for a single, specialized life history stage (nesting) influences community structure and provides a framework for understanding how termitaria affect avian structure and species coexistence.